Towards a Science of Sustainability: Conference to be held Fall 2009 at Warrenton, VA

The challenges of achieving a sustainable future for humanity are among the most crucial facing society today. To understand the complex and dynamic interconnections among human and environmental systems, and to mobilize that knowledge to inform effective management and policy making, will require increasingly powerful quantitative tools, building upon but expanding dramatically the approaches available for modeling, prediction and analysis of climate systems, ecosystems and socio-economic systems. To address these challenges, the organizers will hold a workshop in Winter 2009 to bring together scientists and practitioners from across a broad spectrum of disciplines, to identify crucial open research questions whose solution would advance the field by quantum levels. Our hope is that the products of this workshop will help guide priorities for funding of research on sustainability.